DC: Medium: Collaborative Research: Data Intensive Computing: Scalable, Social Data Analysis

Analysts in all areas of human knowledge, from science and engineering
to economics, social science and journalism are drowning in data. The
proliferation of digital information requires tools and techniques for
exploring, analyzing and communicating data in a manner that scales as
both the data and the organizations analyzing it grow in
size. Throughout the data life-cycle, sensemaking is often a
collaborative process. As different analysts each contribute to data
acquisition, cleaning, analysis, and interpretation they contribute
contextual knowledge that deepens understanding. Analysts may disagree
on how to interpret data, but then work together to reach
consensus. Many data sets are so large that thorough exploration by a
single person is unlikely. In short, social cognition plays a critical
role in the process of scalable data analysis. New analysis tools that
address human cognitive characteristics, social interaction and data
analytics in an integrated fashion can improve our ability to turn
data into knowledge.

Scalable data analysis requires social interaction and therefore
social context must be embedded in data analysis tools. The goals of
this project are (1) to understand how social interaction and social
context can facilitate successful data analysis, (2) to develop models
and tools for representing and annotating data transformations,
visualizations, and social activity (e.g., textual and graphical
annotations, discussions, links, tags), and (3) to design and test
visual interfaces that leverage our tools to support collaborative
analysis practices, including data entry, transformation,
visualization, and interpretation. Central concerns include (a) a
focus on enabling social interaction throughout the data life-cycle
and (b) the use of scalable data transformation routines that can
return results in a time frame concordant with interactive,
exploratory data transformation and analysis.

Further information on this project can be found at:
http://vis.berkeley.edu/projects/scalable_social_data_analysis/